Probabilistic Approach in Geometric Functional Analysis

The PI plans to study convex bodies using the methods of probability.
For many problems of convex geometry, such as finding sections of a convex
body with certain nice properties or approximating a convex body by another
body having a better structure, explicit constructions are unknown.
In these cases random constructions turn out to be very effective.
It is often possible to define a random section or approximation and
to show that it has the desired property with high probability.
This approach combined with advanced probabilistic tools, such as measure
concentration, have led to major discoveries in convex geometry and functional
analysis.
The PI also plans to study the combinatorial dimension
of a set of functions. This is a new notion
which arises from questions in probability and computer science.
The PI plans to investigate the connection between the entropy and the
combinatorial dimension and apply the results to study properties of
convex bodies.

The proposed research will provide new connections between
functional analysis, convex geometry and probability.
The study of combinatorial dimension is likely to have concrete
practical applications in machine learning.
The non-symmetric convex sets, which are one of the main objects
of the proposed research, arise naturally in a broad class
of optimization problems. So, better understanding of the structure
of such bodies will result in constructing more effective optimization
algorithms.